The Early Alert

The Lincoln University Urban Center in cooperation with the University of Pennsylvania will initiate a three-week, commuter Young Scholars (EAI) project in Physics and Mathematics for 30 students entering grade 7. The emphasis will be on the physics and biophysics of light and electricity. Participants will return for follow-up activities on 20 Saturdays during the academic year.